The 9th International Conference on the Environmental Effects of Nanoparticles and Nanomaterials to be held on September 7-11, 2014 in Columbia, S.C.

CBET - 1361594
This proposal will provide support for the 9th International Conference on the Environmental Effects of Nanoparticles and Nanomaterials (ICEENN). The conference aims to bring together researchers, regulators and industry to discuss the potential hazards and risks of current and future applications in the key sector of nanotechnology, along with mechanisms to bring about risk reduction while maintaining economic and social benefits.